Mathematical Sciences: U.S. - Russia Cooperative Research Program

9300752 Friedlander This award will support international collaborative research of four investigators: S. Friedlander and M. Vishik from the United States, and V. Oseledets and V. Yudovich from the Republic of Russia. The research involves magnetic field generation by dynamos and stability and bifurcation in hydrodynamics. The project is funded jointly by the Division of Mathematical Sciences and the Division of International Programs. ***